"On Ramps" to Full Professor: Institutional Support for Post-Family Leave Faculty Research Reintegration

This project addresses career-life-balance (CLB) barriers that confront tenured associated professors who have not been promoted. UMBC will develop and implement a pilot project designed to determine if an intensive post-family leave two-year acceleration plan embedded within an aggressive career-life balance institutional integration campaign (which encompasses graduate students, postdoctoral fellows, and faculty) will create the necessary conditions to impact progress toward professor status for an identified cohort of 16 women associate professors. In addition to the development of a post-family leave reintegration model, eight seminars and community building workshops will be held to create a campus culture that is deeply and demonstrably committed to work-life integration in STEM disciplines.

Broader significance and importance: This project will employ an integrative pathway approach to work-like balance support that will be representative of a comprehensive CLB initiative of coordinated CLB principles, policies, resources, and practices. The model will help re-define the view of career so that it includes, rather than excludes, one's personal life.